AF: Algorithms and Mechanisms from Data

Modern society relies on algorithms to make decisions in settings such as recommendation systems, logistics, navigation, online marketplaces, hiring, health care, and resource allocation. These decisions often depend on data, but data is not always free, accurate, complete, or equally available to all participants. A central challenge is deciding when it is worth gathering more information, how information should be priced or shared, and how decisions can remain reliable when the available data is uncertain, noisy, or affected by the incentives of people and organizations. This project develops mathematical foundations for decision making in such information-limited environments. The work will help advance the science of algorithms and markets, with potential long-term benefits for more efficient online platforms, better use of scarce resources, improved robustness to unreliable data, and fairer treatment of participants who have different levels of information. The project will also support the training of students in theoretical computer science and its connections to economics, optimization, and data-driven decision making.

This project studies four related research directions at the interface of algorithms, optimization, and economic theory. The first direction develops models for optimization when information has a cost, including settings in which uncertain inputs can be inspected or refined before decisions are made. The second direction studies mechanism design for data markets, with a focus on pricing, bundling, and selling information to agents who may value data in different ways. The third direction develops allocation and pricing methods for markets in which buyers have incomplete or ambiguous knowledge of their own preferences and sellers face uncertainty about demand. The fourth direction studies algorithm design in the presence of outliers, with the goal of integrating principled removal of unreliable or irrelevant data directly into algorithmic methods. Across these directions, the project will extend classical tools such as stochastic optimization, online algorithms, robust optimization, and Bayesian mechanism design to richer models that capture costly, noisy, and uncertain information. The expected outcomes include new algorithms, new analysis techniques, and a clearer theoretical understanding of how data, incentives, and uncertainty interact in modern computational systems.